U.S.-United Kingdom Cooperative Research: Energy Absorbing Structures Containing Tubular Elements

This award will support collaborative research to be carried out by Dr. John Carney, Vanderbilt University, Dr. William Stronge, University of Cambridge, and Dr. S. R. Reid University of Manchester, Institute of Science and Technology (UMIST). The proposed research program will involve an experimental and analytical investigation of the quasi-static and impact energy dissipation characteristics of structural systems containing metallic tubes as energy dissipating elements. The objectives of the proposed research include four specific tasks. In Task 1, the energy dissipation characteristics of clusters of unstiffened and stiffened tubular assemblies will be optimized with respect to their intertubular boundary conditions, their radius to wall thickness ratios, and their strain-hardening and strain-rate properties. The behavior of composite (foam filled) metallic tubes under axial and lateral loading conditions and large deformations will be investigated in Task 2. Task 3 is concerned with the generalization of one-dimensional shock theory to model the impact response of two-dimensional tubular arrays. Finally, Task 4 will involve the development of an expert system which will optimize the design of impact attenuation devices employed in highway safety operations. The impact mechanics laboratory at Vanderbilt University, the University of Cambridge and UMIST have unique experimental facilities, the sharing of which will greatly enhance the productivity of the researchers involved. Results of this joint project should contribute to basic research efforts in the important area of impact mechanics.